Workshop on Chinese Design and Production Engineering Research; Tempe, AZ; January 8-12, 1990

The purpose of this workshop is to provide an assessment of current research in the People's Republic of China in the areas of computer-aided design and manufacturing (CAD/CAM), production engineering, precision engineering, and production systems and process planning. It will also afford the opportunity for interaction between Chinese and United States researchers on these subjects. Through this interaction, the workshop will calibrate the research of our Chinese counterparts against that of the United States research community. To accomplish this a select group of Chinese researchers in the above-mentioned fields will be invited to the United States to attend the National Science Foundation-sponsored Conference on Production Research and Technology-Advances in Manufacturing Systems Integration and Processes, to be held January 8-12, 1990 at Arizona State University in Tempe, AZ. After the meeting, visits would be arranged for the Chinese researchers to National Science Foundation-funded Engineering Research Centers in these fields as well as to other University and industry research laboratories conducting similar work. At the end of the workshop activity, the attendees of the workshop will be asked to submit a report detailing their observations and findings, summarizing their own work, and comparing it to similar work they saw in the United States.